Direct Methane Activation to Methanol Across Mixed ConductinConducting Membranes

The objective of this effort is a continuous process that converts methane to methanol. The strategy is to convert methane first to a methyl halide using a solid electrolyte to remove the hydrogen ions formed, and to then hydrolyze the halide over a basic catalyst. Perovskites of various types can perform all these roles, and the process depends on finding a suitable mixed perovskite membrane. If such a system demonstrated high efficiency and reasonable operating life, the commercial potential would be enormous. Easy conversion of natural gas to a liquid fuel or a chemical feedstock could revolutionize the economics of energy production.